Workshop on Social Allocations Under Varying Market Structures - July-August 1987, Stanford University

This grant supports a program of workshops, conferences and seminars organized under the auspices of the Institute for Mathematical Studies in the Social Sciences (IMSSS) at Stanford University for the summer of 1987. One of the major objectives of this program is to reshape modern economic theory to better capture such realistic features of a market economy as the failure of markets to clear instantly, coalition formation, imperfect and differential information, power, price linkages, and taxation. The large number of jointly authored papers resulting from past IMSSS summer programs, often with some of the authors moving into new fields, is evidence of the interaction of the participants in the workshops. Professor Kurz is a distinguished economic theorist and the organizer of many successful IMSSS conferences in the past. He is well-qualified to continue to organize this conference.